Mathematical Sciences: Planning Proposal for Supercomputer Applications in Statistics

Much scientific research now involves obtaining large numbers of observations which are interrelated in highly complicated ways. Quantitative work for such research is often best served in a supercomputer environment because of both the enormity of the data and the complexity of the relationships. In this exploratory project the principal investigator will examine the statistical interface with supercomputing to determine areas of statistical theory and also applications where the comparative advantage of supercomputing is great. Then with a selected area or application as the focus, essential statistical issues may be defined or redefined for the supercomputing context.